Workshop on Range Image Understanding

There has been a growing research interest in range image understanding in the computer vision community. Range images offer several advantages over conventional intensity images in the recognition of 3-dimensional objects. This project provides partical support for a workshop brings together active researchers in range image understanding to discuss emerging themes in this field. The workshop will identify major research area that should be addressed for making range image understanding systems useful in industrial and other application. Guidelines for establishing a common range image data base will also be discussed. Findings of the workshop will be widely disseminated in the computer vision community.